Use of an Aquatic Ecosystem in Undergraduate Chemistry Curricula

9354530 Hughes The project will make use of a large aquarium as an aquatic ecosystem on which to develop concepts and techniques of analytical chemistry. Chemical monitoring of all aspects of the ecosystem will be the basis for a part of the laboratory experience. The curriculum, already introduced at the introductory level, now will be expanded to the third quarter freshman level chemistry class. This class includes prospective chemistry, engineering, textile, and biology majors. The course modifications will introduce relevant problems from the real world into the laboratory curriculum, stimulate increased interest in chemistry, and possibly increase the number of chemistry majors at this level. The affect on the junior/senior analytical curriculum will be to significantly increase the amount of time available for training and independent work on modern instrumentation. The proposed course modifications will provide a greater appreciation for the field of chemistry and the role it plays in the environment and all biological processes. ***y